Semiconductor-Doped Glasses for Nonlinear Guided Wave Optics

This effort deals with the utilization of nonlinear optical materials for applications to lightwave devices. Such materials are necessary for the purpose of switching optical beams, processing optical signals, and generating optical beams with frequencies not available otherwise.